Survival of HIV in Domestic Waste Water and Environmental Waters of the Atlantic Ocean and Chesapeake Bay

In this project, the investigator is conducting research on the survivability of the human immunodeficiency virus, Type 1 (HIV-1) in domestic wastewater and environmental waters into which untreated and treated domestic wastes can be placed. In this research, the investigator plans to conduct laboratory work involving the incubation of domestic wastes and environmental waters that have been contaminated with HIV-1 isolates to determine the survival characteristics of this virus when subjected to this environmental stress. The viability of recovered virus will be determined by co- cultivation with treated normal human lymphocytes using antigen capture and reverse-transcriptase assays as viral growth determinants. This proposal was submitted under conditions outlined in NSF 87-90, Expedited Awards for Novel Research. Results of this exploratory project are expected to provide the basis for any further research that is warranted on determination of the nature of the potential impact of the HIV-1 virus on environmental resources and to provide insights into the impact of the results on environmental engineering design of processes and control systems to deal with this potential environmental contaminant.